Planning Grant: University of Missouri Affiliation with the Center for Engineering Logistics and Distribution (CELDi)

This planning grant serves to establish the basis for the University of Missouri Columbia to join the existing Industry/University Cooperative Research Center for Engineering Logistics and Distribution. The Center presently includes ten university research sites. Researchers at the University of Missouri will support and add additional perspectives and capabilities to the following research thrust areas; Logistics System Analysis and Design; Supply Chain Modeling; Material Flow Design and Improvement; and Intelligent Systems.